Collaborative Research: FRG: Minimal Surfaces, Moduli Spaces and Computation

The global theory of minimal surfaces in space is in a phase of
explosive growth. Many new methods of constructing complete
embedded minimal surfaces have recently been found; in place of a
dearth of examples just a few years ago, we now have a quite
varied collection of surfaces, including infinite families. A
basic problem is to classify these examples, i.e. collect them
into families with common properties and understood
limits. Fruitful approaches have recently been developed that
combine numerical simulation with methods from the theory of
geometric structures on surfaces and classical complex analysis,
notably Teichmuller theory. Some of the problems the team will
attack are: Are there embedded minimal surfaces with one
heliciodal end and arbitrary genus? Is the classical Scherk
surface the unique desingularization of a pair of planes? Of
what families is the Scherk surface the limit point? At the same
time, the group hopes to make progress on simulation of minimal
surfaces. For example, we hope to set up a library of Weierstrass
representations of minimal surfaces which is reproducible, fully
documented, and useful as a research tool.

A guiding philosophy in many areas of science, from physics to
biochemistry to ecology, is that nature is maximally efficient;
indeed, many explanations of natural phenomena have at their
foundation the assumption that the phenomenon has optimized some
or several of its features in the expression we witness. At its
base, this philosophical principle is mathematical in nature: we
search for principles in science that can be formulated as
extremal problems. In mathematics, we can make this assumption of
optimality very rigorous by expressing it as an equation. This
leaves us with the problem of understanding all of the solutions
of that equation. In this project, we aim to study one very rich
type of optimization problem, the minimal surface problem, which
is already known to have a number of quite subtle
characteristics. (A minimal surface is one for which each small
piece has less area than any other surface with the same
boundary.) The study of these surfaces has its origins in
physical problems studied first by Euler; then, a century later,
the problem also arose in the studies of the behavior of rotating
droplets and soap films by F. Plateau. Today the applications
range from cosmology to the understanding of the structure of
stable periodic structures in compound copolymers. As in many
other optimization problems, for the minimal surface problem, we
do not have much general information about solutions to the
equation expressing extremality. At present though, we do have a
wide variety of examples which help to guide our intuition, and
which we are beginning to organize. It is thus a good model
problem, enriching our understanding of all optimization
problems.